1999 Solid State Chemistry Gordon Conference, Oxford UK, September 19-24, 1999

9907880
Storm
The Gordon Research Conference on Solid State Chemistry will be held in Queens College, Oxford, England September 19 - September 23, 1999. The goal of the conference is to facilitate interdisciplinary interactions and information exchange within a broad spectrum of researchers with interest in solid state chemistry. The NSF funds will be used to support the attendance of young American Scientists.
%%%
Solid State Chemistry continues to have direct impact on the technological advances to our society by designing new materials such as porous solids for catalysis or thin films for electronics.